FAST: Financial Aid for Success in Technology

PROJECT SUMMARY
This project is providing the equivalent of 32 full-time scholarships per year to students from educationally under-served backgrounds ranging from rural to inner-city environments. In addition to access to a quality education, the students receive both faculty and peer mentoring, time and resource management counseling, and, if needed, tutoring at no cost. During the junior and senior years, students have the opportunity to undertake research, participate in technological leadership seminars and engage in cooperative education which allows them to simultaneously earn money for educationally related expenses and obtain experience in their chosen career field.